Macromolecular Instrumentation for Cell and Molecular Biology

This award provides funds to establish a core facility for macromolecular synthesis and analysis at the College of Medicine of the Pennsylvania State University. The facility will foster and facilitate interaction and collaboration among cell and molecular Biology that stresses rigorous research training for graduate students, and train postdoctoral fellows in a research environment that stresses the use of cell and molecular biology techniques. The instrumentation will be used for research that involves all phases of cell and molecular biology-- membrane structure, receptors and modulators, cytoskeleton, organelle cell culture. The investigators are engaged in high- quality research and are productive.